RUI: Structural and Functional Analysis of Bovine Ceruloplasmin

Goode 9317963 Ceruloplasmin is a serum protein that is believed to be involved in the transport of copper to specific extra-hepatic cells. This process is mediated by cell surface receptors which have been identified in tissues such as brain, heart, placenta and aorta. Using the bovine system, we will attempt to isolate the ceruloplasmin receptor from brain and placenta. The isolated receptor will be characterized using standard techniques including size-exclusion chromatography, SDS-PAGE, N-terminal sequence analysis and peptide mapping. Use of antibodies against the receptor in preventing cellular uptake of copper from ceruloplasmin will also be investigated. In addition to studies on ceruloplasmin receptor, we will also characterize two isoforms of bovine ceruloplasmin. This will be accomplished using both biochemical and physical techniques including carbohydrate analysis, peptide mapping, circular dichroic and atomic absorption spectroscopies and single crystal X-ray diffraction. Information on the role(s) and nature of these two forms may aid in our understanding of the mechanisms by which copper is removed from the protein into the receptor cell. %%% The average American consumes 1.2-1.7 mg of copper per day of which roughly half is actually absorbed and enters the blood and tissues. A key player in copper metabolism is the serum protein ceruloplasmin, which is believed to be involved in the transport of copper to specific cells such as brain, heart and placenta. These cells recognize and bind ceruloplasmin through the presence of cell surface receptors. Our work will study the chemistry and role(s) of different forms of bovine ceruloplasmin isolated from bovine serum, using various biochemical and physical techniques. In addition we will continue to investigate the role of the membrane receptor in copper delivery to cells. This information will help to clarify the role of ceruloplasmin in copper metabolism, and perhaps give us a clearer pictu re of the mechanism by which copper is distributed in the body. ***